Theory, Implementation, and Applications of Sublinear-Time Fourier Transform Algorithms

The problem of computing a Fourier representation of data is a
fundamental one, that arises in many areas of mathematics, science,
and technology. Recently, a class of algorithms has been proposed to
approximate the Fourier transform, with provable quality guarantees,
in dramatically less time than required by traditional exact
algorithms. The investigator and his colleagues evaluate competing
variations of the algorithm, both proposed and new, and choose the
best from among them for general purpose use as well as for specific
application to Magnetic Resonence Imaging and solution of partial
differential equations, including advection-diffusion equations.

The Fourier Transform is a fundamental technique with many
applications. The investigator and his team investigate recent
approximate methods that are dramatically more efficient than
traditional methods. The team directly addresses applications to
biomedical Magnetic Resonance Imaging and the modeling of liquid and
gas behavior, which has further applications to studying the
atmosphere and bodies of water in the environment, as well as
applications to manufacturing. The investigator and his team also
make available fundamental tools that will be useful to others in a
broad range of scientific, educational, and engineering settings
including modeling the interactions of tiny particles, reliable
telecommunications, and imaging generally. The project combines
cutting-edge techniques from several disciplines and trains a graduate
student in these techniques and their integration.